Dissertation Research: The Evolution and Development of Abdominal Pigmentation Patterns in Natural Populations of Drosophila polymorpha

0104977
Templeton

Abdominal pigmentation pattern varies widely in the genus Drosophila.
In particular, the South American species D. polymorpha exhibits a range
of abdominal pigmentation patterns, with light, intermediate, and dark
morphs. The frequency of these morphs varies with time and space,
indicating that this trait is under natural selection and thus important
in the ecology of the species. The proposed research aims to understand
this pigmentation pattern polymorphism from both developmental and
population genetic perspectives by: 1) examining the developmental
processes leading to pigmentation differences within the species; 2)
correlating pigmentation differences with variation at candidate gene
loci; and 3) examining the microevolutionary forces affecting current
geographic distributions of the trait by determining the spatial
distribution of genetic variation in natural Brazilian populations.
Only a few similar studies have investigated the general question of
morphological evolution at such a microevolutionary level, and only a
subset of these have addressed the evolutionary forces shaping the fate
of a variable trait. Finally, this proposal is unique in that it is a
multidisciplinary approach, uniting investigators and integrating
methods from both developmental biology and population genetics in both the United States and Brazil.